PRIMES: Parents Rediscovering and Interacting with Math and Engaging Schools

9705397 Goldman The Institute for Research on Learning is undertaking a multifaceted effort to help parents become more involved in the mathematics education of their children. This project establishes a Design Consortium; develops new materials and collaborative activity structures; provides outreach, training, and technical assistance to communities; and disseminates these products to the educational community. The design consortium creates contexts for raising parent participation in communities where it is most needed and uses these contexts to plan and construct mathematics materials based on issues parents face in everyday life. The outreach activities include planning support and workshops for schools, community organizations, and parent groups. Dissemination is done through presentations and talks and through research articles.